Charter Party Agreement - R/V ENDEAVOR

9618703 LEINEN The NSF-owned Research Vessel ENDEAVOR has been operated under a charter party agreement by the University of Rhode Island since it was put into service in 1976. This project extends the Institution's operation of the ENDEAVOR for five years under an updated, modified charter party agreement. ***